Engineering Research Equipment: TOC Analyzer

9622176 Malley The Total Organic Carbon (TOC) analyzer with autosampler requested in this proposal will be used for several ongoing research in the areas of environmental engineering such as: "An Evaluation of UV for Disinfection of Groundwater and its Effect on Biological Regrowth in Distribution Systems"; "Role of Protozoa in an Organically-Contaminated Subsurface Environment". "Bioremediation of Alaskan Soils Contaminated with Petroleum Hydrocarbons"; The Effect of Natural Organic Matter and Iron on Granular Activated Carbon (GAC) in Radon Removal from Drinking Water". Evaluating GAC Sandwich Modifications to a Slow Sand Filtration Facility"; "Treatability of Natural Organic Matter from the Croton Reservoir - New York City"; and "Fundamental Research on the Mechanisms of the WES-Phix Process in Eight Waste Materials." In each of these projects, low levels of organic carbon play a fundamental role in the biological, chemical and/or physical processes that are occurring in the environmental engineering system being studied. The TOC analyzer will quantify these low levels and detect small changes in the organic carbon that may impact each system's engineering behavior.